CONFERENCE ON RECRUITMENT AND RETENTION OF MINORITIES IN PHYSICS

9353019 Stith The American Association of Physics Teachers (AAPT), the American Physical Society (APS), the American Institute of Physics (AIP), and the National Society of Black Physicists (NSBP) plan to host a conference which addresses the problems inherent in the recruitment and retention of minorities in Physics. This one and a half day conference will be attended by representatives of professional societies, academic physics leaders, and minority leader teachers and students from several school systems. The outcomes of the conference will include a set of recommendations and a dissemination strategy which will be effective in the improvement of the recruitment and retention of minorities in physics in schools and colleges across the nation. ***